Broadening Participation in Economics: The AEA Summer Program with Inclusive Mentoring

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

This award funds Howard University as the host of the American Economic Association Summer Training Program. The goal of the AEASTP is to help talented undergraduate students advance their technical skills and conduct research in economics in preparation for studies at the doctoral level. Organizers make special efforts to recruit students from groups under-represented in the economics profession. The program combines research experience with intensive coursework and career mentoring in a residential experience. Instructors in the program include both leading economists and a cohort of Summer Fellows, graduate students in economics who serve as mentors for the students. Fellows get training in inclusive teaching methods and benefit from access to the faculty instructors, who work with both students and fellows as research mentors. AEASTP students will participate in research experiences at a number of federal agencies and non-profit organizations in the Washington DC area, and the instructional staff will include economists employed by the Federal Reserve Bank Board of Governors. The awardee institution will partner with the Women’s Institute on Science, Equity, and Race (WISER) to provide year-around mentoring for AEASTP participants.

The road to successful Ph.D. study in economics can be a rocky one, especially for students coming from minority-serving institutions and institutions that do not have a strong research focus. Obstacles include undergraduate economics curricula that are often oriented towards the most popular student career goal - business - than Ph.D. study, a lack of familiarity with the application process, and financial limitations. One consequence is that several important demographic groups are under-represented on economics faculties in the U.S. Over the course of this award, a strong cohortof students will be able to successfully advance to become mature researchers in economics and related social sciences. Their experiences will be instrumental in their later careers in allowing them to use a strong professional network to help them foster a more inclusive environment in their own teaching and research efforts. By broadening participation in the economics profession, the program will have a positive and lasting impact on shaping professional research agendas in economics and related fields to the benefit of the United States.